A Planning Workshop on Research Needs in Fiber Textile and Related Industries; April 23, 1987; Washington, DC

The American fiber, textile and related industries are going through a period of decline in the international market. To regain the leadership various technical and non-technical issues need to be resolved. On a long-term basis, however, new technologies which are less capital and labor intension must be developed. Further, research needs to be initiated to develop new products for the market of the future. The purpose of this project to convene a one day planning workshop with the leaders of the industries concerned and faculty members who are involved in research and education in these areas. Promising research opportunities will be identified. The role of the National Science Foundation in encouraging university-industry joint research activity will be delineated. The recommendations will be used in developing a Program Announcement.